Development of Selective Connectivity in a Simple Nervous System

Murphey 9514701 Nerve cells, or neurons, communicate with each other at specialized junctions called synapses. At chemical synapses, an active neuron releases a particular chemical neurotransmitter compound from the presynaptic side of the terminal to cross the tiny synaptic gap and bind to receptor molecules on the postsynaptic cell. Binding of the neurotransmitter leads to an electrophysiological change called the postsynaptic potential. Two sensitive indicators of transmitter release that can be measured by electrophysiological recordings are facilitation, which is an increased postsynaptic response, and depression, which is a decreased postsynaptic response. Some identified single cells in insects can make two different kinds of synapse on postsynaptic cells, facilitating at one cell and depressing at the other. The emergence of facilitation at a synapse has been found to be regulated by the postsynaptic cell, so the target cell has an effect on the input it receives. This work will use electrophysiology and pharmacology to examine this retrograde regulation of transmitter release, using the advantages of invertebrate nervous systems in having particular identifiable synapses. It may be that a continuous release of a co-transmitter differentially adjusts the properties of the presynaptic terminal, or instead that the postsynaptic neurons release a substance that regulates the function of the presynaptic terminal. Results from this work will be important to understanding the important issue of how synaptic activity is regulated, and these results are likely to have a broad impact in both neurophysiology and developmental neuroscience.